Recognizing Genes and other Components of Genomic Structure:Proposal for a Workshop to be held May 28 - June 15, 1990

A three-week workshop, involving about 20 residents at any one time, will discuss current needs and future strategies for developing the ability to identify and predict the presence of complex functional units on sequenced, but otherwise uncharacterized, genomic DNA. This focus will address the need for computation-based, automatic tools for synthesizing available data about individual consensus sequences and local compositional patterns into the composite objects (e.g., genes) that are -- as composite entities -- the true objects of interest when scanning DNA sequences. The workshop has been structured to promote sustained informal contact and exchange of expertise between molecular biologists, computer scientists,and mathematicians. No participant will stay for less than one week, and most will attend for two-three weeks. Computers, software, and databases will be available for use as "electronic blackboards."